Dissertation Research: Ecological Conflict and Control in Ankarana, Madagascar

This project supports the dissertation research of an anthropology student from the University of Michigan. The research will examine the relationship between indigenous politics and the regulation of natural resources in northern Madagascar. Using ethnographic methods of participant observation, structured interviewing, household surveys, extended case studies of resource conflicts, and analysis of remote sensing images of land use, the student will try to understand the local populations' patterns of resource use in the context of competing demands from local, national, and international interests. This project is important because Madagascar is a uniquely important ecological resource for the world. Understanding the dynamics of resource use by local traditional peoples can help international aid organizations design programs to satisfy local needs as well as preserve the environment.